Topics in Classical and Quantum Relativity

A number of problems in mathematical relativity and quantum gravity will be carried out by Prof. Torre. In mathematical relativity advantage is taken of recent results on the jet space structure of the vacuum Einstein equations. In detail, the modern theory of conservation laws, which provides a practical framework for computing conserved volume, surface and line integrals associated to a system of field equations, is applied to the Einstein equations. The conservation laws of the Einstein equations with and without Killing vectors are computed. A general theory of asymptotic conservation laws, which describes surface integral conservation laws of solutions with a given asymptotic structure, such as the ADM energy, is developed and used to give a formalism for computing such conservation laws for a large class of generally covariant field equations and asymptotic structures. These results are applied to the problem of giving a definition of `dynamical black hole entropy`. Finally, recent results on symmetry reductions of partial differential equations are used to give general theorems on symmetry reductions of generally covariant field equations for a spacetime metric. In quantum gravity, work involves both canonical and path integral methods of quantization of the gravitational field. The problem of functional evolution in canonical quantum gravity is addressed via symmetry-reduced models of general relativity obtained by assuming the existence of two commuting Killing vector fields. These models are quantized rigorously and consistently with respect to general covariance. The possibility of accomplishing a Dirac quantization of a parametrized free field theory in Minkowski space is addressed using techniques from algebraic quantization. Path integral quantization is studied using Ashtekar variables.